Presidential Young Investigator Award-Genetic Algorithms andMachine Learning in Dynamic Systems Control

A three-pronged research effort will be initiated. Four projects in three categories, genetic algorithms, classifier (rule-learning) systems, and fluid pipeline simulation and control, will be undertaken. The role of dominance operators in genetic algorithms will be studied to demonstrate their importance in non-stationary environments; extensions to classifier systems will be studied to enhance their rule-learning capability when applied to dynamic system control; stochastic interpolations in time will be studied as a new numerical solution technique for hyperbolic partial differential equations with possible efficiency and accuracy advantages; and a pipeline operations laboratory will be established at the University of Alabama with its first project targeted at advanced pipeline simulation.